Installation of a Mobile Compactor System, Museum of Paleontology, University of California, Berkeley

9407846 Lindberg The University of California Museum of Paleontology (UCMP) houses one of the nation's largest and most important collections of fossil vertebrates, invertebrates, protists, and plants. For more than a decade UCMP has required additional space to facilitate curation and research activity as well as maintain archival activity. This funding will permit installation of a mobile compactor system for the museum. Because we have coordinated the installation of the mobile compactors with the move of the museum to new facilities, the level of institutional support is substantial. Funding of this proposal will: {SYMBOL 183 \f "Symbol" \s 10 \h} provide a complete physical reorganization of the collection {SYMBOL 183 \f "Symbol" \s 10 \h} improve collection conservation {SYMBOL 183 \f "Symbol" \s 10 \h} provide efficient and effective access to specimens {SYMBOL 183 \f "Symbol" \s 10 \h} provide more efficient use of collection space {SYMBOL 183 \f "Symbol" \s 10 \h} increased availability of collection data to the paleontological and neontological communities {SYMBOL 183 \f "Symbol" \s 10 \h} provide space for the compete curation of several orphaned collections.